CT-T Collaborative Research: Security for Smart Tags

Kevin Fu
University of Massachusetts, Amherst
0627529
Panel: P060970
CT-T Collaborative Research: Security for Smart Tags

Abstract

SmartTags are inexpensive wireless devices that identify and authenticate
objects and people - in short, devices that must label things securely.
SmartTags include Radio-Frequency Identification (RFID) tags, contactless
smartcards, and low-resource sensors - a class of computing devices that
promises to be the most numerous in the world. A unifying characteristic of
SmartTags is that they do not perform autonomous computation and often lack
internal power sources. Nomadic tags respond automatically to reader
interrogation, and thus have highly sporadic network connectivity. Extending
the network to new physical dimensions, SmartTags promise to serve as the
"fingertips" of the next-generation Internet. Yet this growth at the edge of
the network presents new challenges in security and privacy unresolved by
standard approaches and not captured by existing threat models. The research
goals of this project are threefold. First, to develop new cryptographic
constructs and protocols that take into account both the constrained resources
and the unique operating environments inherent in SmartTag operation.
Additionally, new methods to synthesize security for existing tags by
leveraging non-security features are being developed. Second, because SmartTag
capabilities and limitations are closely tied to the underlying hardware of
both the tag and the reader, a prototype SmartTag chip is being developed and
fabricated. This allows for validation of theoretical results and an
investigation of side channel attacks and defenses for SmartTags. Finally,
system level design issues will be investigated by building privacy-preserving
protocols for SmartTags used in public transportation.